Cognitive Consequences of Emotion

9311879 Clore ABSTRACT Across a variety of tasks, recent research has shown a surprisingly consistent tendency for social information processing to be affected by background mood states. The experience of positive affect appears to foster heuristic information processes (reliance on generalizations, stereotypes, schemata, expectations, but also creative thinking). Negative affect leads to more systematic processing (attention to detail, use of analytic thinking and logic). Several explanations for these effects have been advanced. This research will examine the social and nonsocial information processing conditions under which these effects occur and test predictions from the major explanations. Such new information about these pervasive tendencies promises a clearer picture of the processes by which emotional factors affect everyday thought and action.